A Computer Security Laboratory for Computer Science Majors

As the United States becomes more dependent on computer systems, the potential for damage caused by the misuse of private, personal, or secret data stored on these systems increases significantly. As a result, it is important that the future generation of computer professionals be trained to understand their ethical and moral responsibilities in dealing with the information with which they have been entrusted. In addition, they need to be equipped with the knowledge and tools to enable them to protect that information from misuse. Hence, this project develops a laboratory-based sequence in computer security. The two course sequence covers topics in professional responsibilities, data encryption, network security, operating system security, viruses, and data base security. The award is being matched by an equal amount from the principal investigator's institution.